A Hands-On Interdisciplinary Preservice Science Course

The California Institute of Technology will develop and deliver through a collaborative effort by scientists, teacher- educators, and master teachers, a one-semester course for the elementary teacher education program. Future elementary teachers will construct their own science knowledge and work cooperatively in a "hands on" science classroom environment. These prospective teachers will do challenging investigations with sophisticated tools while modeling good science teaching. Simultaneously, the course will provide a solid foundation in fundamental principles of biology, chemistry, physics and earth science. The course will be integrated into the elementary science teacher program.